Characterization of Ultrasonic Propagation in Tissue

Although ultrasound imaging is a well accepted clinical, diagnostic tool in medicine, there is still a lack of understanding concerning the mechanisms of interaction. This research effort will characterize ultrasonic wave propagation by means of mathematical modeling and experimental verification. Both statistical and deterministic approaches will be employed to examine parameters such as wavefront distortion and refraction errors to better characterize the ultrasonic field in tissue. The results of this investigation are expected to help define limits of resolution for ultrasonic imaging systems.